First International Airborne Remote Sensing Conference and Exhibition; Strasbourg, France; September 11-15, 1994

Support of this proposal will provide funds toward the First International Airborne Remote Sensing Conference and Exhibition in Strasbourg, France, in September 1994. This conference will provide an opportunity for scientific, government and commercial communities to exchange ideas and information on the latest developments in airborne remote sensing systems. The conference includes an exhibition program, field trips, and workshops.